General Equilibrium Models of Agglomeration: The Endogenous Location of Consumers, Producers, and Marketplace

9523940 Berliant This grant will provide support for the second year of this foundational research on the location of consumers, producers, and marketplaces. For a description of the entire research project see the abstract for grant # SBR 9319994.